Variability of the Solar Neutrino Flux

AWARD NO: AST-0607572
PI: Peter Sturrock
INSTITUTION: Stanford University
TITLE: Variability of the Solar Neutrino Flux
Over the last decade, analysis of solar neutrino data has produced increasingly strong
evidence for variability. A case is put forth that the recent statistical reexamination of the
Gallium Experiment/Gallium Neutrino Observatory and Super-Kamiokande data by PI
Sturrock and collaborators now provides a convincing demonstration that the solar
neutrino flux is not constant - rather, it varies with patterns that provide insight into the
underlying nature of neutrinos and processes in the deep solar interior. The goal of this
work is to provide critical observational inputs through statistical analyses of neutrino
observations for use by the theory community, including two collaborators currently
developing a model in which electron neutrinos couple to a sterile neutrino through a
transition magnetic moment (thereby tying the observed flux to time-dependent magnetic
phenomena, e.g., rotation). Included in this effort is a power-spectrum (for non-normal
estimates) and time-frequency analyses. A second goal is to examine the relationship
between measurements of the flux and other solar variables including measurements
made by the Michelson Doppler Imager helioseismology experiment on the Solar and
Heliospheric Observatory spacecraft, since this experiment probes the deep solar interior,
where neutrino flux modulation is believed to occur.
The results of this work and its implications will be shared with the public through
outreach efforts to local groups and to the Science Explorers Club." The PI Sturrock will
also develop the concepts of scientific interference" (an approach to determining the
nature" of science) both to organize arguments/evidence for and against solar neutrino
variability and to explain the principle at the college science teacher level in an
appropriate journal article.